DINOSAURS!: A Large Format Film Experience

The Maryland Science Center is producing a 40-minute large format film about the discovery and scientific interpretation of dinosaurs based on fossil finds from the Gobi Desert. The film will follow the summer 2004 expedition of the American Museum of Natural History (AMNH) and the Mongolian Academy of Science led by paleontologists Dr. Michael Novacek and Dr. Mark Norell. It will present the scientific evidence for how we know what we know about dinosaurs and will examine such questions as what types of dinosaurs roamed the Gobi, what their environment was like, and what they tell us about the evolution of life on Earth. Greg Andorfer will be Executive Producer. The film will be produced by David Clark and co-directed by Clark and Bayley Silleck.